Industry/University Cooperative Research Activity: PhoreticTransport of Colloidal Particles

Transport of colloidal particles by phoretic mechanisms such as diffusiophoresis, electrophoresis, and osmophoresis will be studied using both experimental and theoretical methods. The experiments involve measurement of particle migration by two separate phenomena: "diffusiophoresis," where a concentration gradient of a simple electrolyte drives the motion of charged colloids, and "ospmophoresis," where vesicles move in response to a gradient of osmotic pressure in the surrounding fluid. The data will be used to test the theoretical models which have been published and to show that these mechanisms of colloidal transport are significant from an engineering, and perhaps biological, point of view. Theoretical work is also anticipated for modeling the influence of proximal boundaries and nearby particles on the diffusiophoretic or electrophoretic velocity of a particle and for modeling the effects of non-uniform surface properties on the phoretic response of particles. Attempts will be made to develop models based on phoretic mechanisms for the locomotion (self-propulsion using chemical energy) of biological cells.